Conference: 12th International Conference on Arabidopsis Research, University of Wisconsin, June 23 - 27, 2001

The 12th International Conference on Arabidopsis Research will be held at
the University of Wisconsin, Madison WI, June 23 - 27, 2001. The aim of this
conference is to provide an opportunity for the exchange of ideas among
researchers of the international Arabidopsis research community. The
conference will include sessions on genomics, metabolism and metabolic
regulation, cell biology, inductive processes, genetic mechanisms,
evolution, responses to the biotic environment, responses to the abiotic
environment, pattern formation and cell fate, and sex and reproductive
development. An important component of the conference is that approximately
40 speakers will be chosen by the session chairs from submitted abstracts
for short talks. The majority of these talks will be given by graduate
students, postdoctoral researchers, or PIs at early stages of their careers.
This will ensure presentation of the latest results and provide important
career development for the selected speakers. The conference will also
include workshops on topics put forward by the Arabidopsis community. A
workshop to foster international collaboration on Arabidopsis functional
genomics and the NSF-supported Arabidopsis 2010 initiative is already
planned. Last year's Arabidopsis Conference at this same site attracted
approximately 900 participants. At least this many participants are
expected this year due to the accelerated pace of Arabidopsis research
resulting in part from the completion of the genome sequence for this
organism, and due to the small number of plant-related conferences scheduled
for summer 2001. Facilities are available to accommodate up to 1000
participants.